MRI: Acquisition of Biogeochemical Analytical Instrumentation for Enhanced Interdisciplinary Research and Training at Arkansas State University

An award has been made to Arkansas State University Main Campus under the direction of Dr. Steven Green to acquire a suite of elemental analyzers for use in ecological monitoring research and education. The instruments will be used to measure levels of carbon, nitrogen and phosphorus in agricultural ditches and stream habitats to study the dynamics of chemical cycling in these ecosystems. The measurements will aid in understanding effects pesticides in field runoff, nutrient cycling in freshwater mussels, and chemical weathering in freshwater habitats. The instruments will be integrated into teaching of graduate and undergraduate students in the use of these instruments for careers in scientific research.